Magnetism in Light of High Temperature Superconductivity, Granular Superconductors, and Mott Insulators

The recently discovered high temperature superconductors exhibit many novel magnetic effects. This has caused physicists to revisit the intimate connections between magnetism and superconductivity. The proposed research will look at the static and dynamic properties of quantum antiferromagnets which characterize LaCuO. Also, theoretical studies of thin film granular superconductors are characterized by two energy scales: a scale at which the amplitude of the order parameter developes and a second scale at which phase coherence develops across the entire sample. Research on these systems requires novel ideas concerning quantum fluctuations of the phase order parameter. The final reserach thrust will look at Mott insulators using a principle of local gauge invariance to understand transitions from the insulating state to a metallic or superconducting one.